Computerization of Anthropology Collection Records at the Museum of Northern Arizona

Beginning in 1928, state, federal, and tribal agencies in northern Arizona began entrusting archaeological collections generated from lands under their jurisdiction to the Museum of Northern Arizona's care. The result is an body of data on both the prehistory and history of the Colorado Plateau region. Materials include almost 200,000 catalogued artifacts - almost all from provenienced contexts with accompanying documentation including culture, site, and time period. Added to this are bulk collections which also are accompanied by excavation information. An extensive ethnographic collection which focusses primarily on Hopi and Navaho materials numbers approximately 10,000 pieces. Both archaeological and ethnographic collections are of great research value and subject to intensive use. However, the crucial documentation which accompanies them is not well organized. It is deteriorating and because of its volume, difficult to organize and access. With NSF support the Museum will computerize this material in order to cross reference individual records and provide greater accessibility. This will minimize direct use and, therefore, the deterioration of the paper records. Dr. Wilcox and colleagues will purchase a Questor-Argus system which is specifically designed for museums collection management. This project is important because it will prevent the deterioration of significant scientific materials, many acquired with federal funds. It will increase the access of the Museum's anthropological collections to researchers who wish to use them. These materials are of importance not only to archaeologists and ethnographers but also to local Native American groups interested in their own traditions.